Introducing Scintillation Counting into the Undergraduate Biochemistry Curriculum

The liquid scintillation counter purchased through this project is making it possible to introduce the theory and techniques of scintillation counting into the undergraduate biochemistry curriculum. The new machine is used to teach undergraduates how to count radioactive isotopes commonly found in industrial, medical, and academic laboratories. The instrument will be used also to study the transport of amino acids across biological membranes, to determine amounts of protein synthesis, and to find the rate at which two strands of DNA combining to form double stranded DNA interact. This instrument also will be used in a variety of undergraduaste biological and chemical research projects. This project will better prepare biochemistry, chemistry, and biology students for success as scientists and medical professionals, and for their service to society. The grantee institution is matching the NSF award with an equal sum obtained from non-Federal sources.